1993 Northwest Developmental Biology Conference University of British Columbia, May 6-8, Vancouver, B.C.

Funds are awarded for support for the 26th Annual Meeting of the Northwest Regional Developmental Biology Conference to be held Thursday through Saturday May 6 - May 8, 1993, in the conference facilities at the University of British Columbia, Vancouver B.C. The main theme for the conference will be transition between developmental states. This theme will be introduced by the opening plenary lecturer (Gerold Schubiger) and expanded upon by the symposium speakers (George Sprague, Ry Meeks-Wagner, William Harris, and Barbara Wakamoto). Presentations by participants will be scheduled for a poster session or one of four platform sessions. Emphasis is on graduate student attendance and participation, including awards for the best student platform and poster presentations. Attendance in the range of 100-150 is expected. The award will be used exclusively to lower the cost of room and board for the estimated 55-75 graduate students expected to attend the conference.